Topical Conference on Critical Issues in Two-Year College Physics and Astronomy

The American Association of Physics Teachers will conduct a national conference to define critical issues facing two-year college physics and astronomy faculty today and in the decades to come. Judgments will be formed as to how these issues should be faced and treated, resources available and those to be needed will be assessed, and a set of recommendations will be published. A second conference objective is related to information collection. Conferees will be selected in such a way as to ensure broad representation from each type of two-year college, as well as from many parts of the United States. In this way, it is anticipated that information on current practice, student outcomes, and future trends can be obtained. As a result of the conference, regional task forces will be formed. They will prioritize and prepare conference reocmmendations for publication. They also will be charged with the responsibility of following through on these recommendations at the local level. Participants, the grantee, and other organizations will contribute an amount equal to about 32% of the award toward the operation of the project.